A Systematic Methodology for Designing VLSI Systolic Arrays with Applications in Pattern Recognition and Image Proces- sing

This research is an engineering approach to the solution of two fundamental problems in designing systolic arrays, namely, restructuring of algorithms for increased parallelism and efficient mapping of algorithms into systolic arrays. The study investigates: new syntactic and semantic transformations on complex algorithms for optimizing area, time, input/output, and other parameters in the systolic architecture; efficient methodology for mapping algorithms onto two- or three-dimensional systolic arrays with feedbacks, replicated data, general timing, and limited or full broadcasting and other architectural constraints; design of macropipelines of systolic arrays and the related problems in interconnection, buffering, timing, and closure property; and design of macropipelines of systolic arrays for image processing and pattern recognition. Emphasis is on both theoretical and practical approaches in this research. With the theory developed, an automated design tool is being implemented so that it can be interfaced with existing VLSI design tools.